Third Sound Attenuation at Low Temperatures

The attenuation of 'third sound' in superfluid helium films, 4 to 20 layers thick, will be studied over the range 30mK to 300mK. In particular, one hopes to illuminate the role of pinned vortices in the damping and, ultimately, develop third-sound attenuation as a reliable probe for many new low-temperature systems.